The Human Condition: Knowledge and Values in the Age of Science

SoundVision Productions is developing and distributing a series of ten, hour-long public radio documentaries that will explore the turbulent boundary between science and the humanities, capturing the present moment of tremendous scientific and scholarly ferment with the unique and intimate power of radio. By introducing the radio audience to the thoughts and voices of some of the world's most accomplished scientists, in conversations with the counterparts in the humanities, the series will look at recent developments in science including physics, molecular and cell biology, environmental science, cognitive psychology and neuroscience, and the multiple disciplines of the life sciences reflecting the increasingly subtle and widespread application of evolutionary theory. In each program, a careful account of new scientific ideas and discoveries will be placed within the context of historical and contemporary thought about the human and natural worlds.

Barinetta Scott, the Executive Producer, has most recently been the Executive Producer for the highly regarded NSF funded NPR series, "The DNA Files." In developing this project, she will work closely with an advisory committee that includes:

John Avise, Research Professor, Dept. of Genetics, University of Georgia

Samuel Barondes, Professor and Director of the University of California San Francisco's Center for Neurobiology and Psychiatry

Terrence Deacon, Associate Professor of Anthropology, Boston University

Anne Foerst, Professor of Computer Science and Theology, St. Bonaventure University

Ursula Goodenough, Dept. of Biology, Washington University, St. Louis

William Irons, Professor of Anthropology, Northwestern University

Gordon Kane, Professor of Physics, University of Michigan

Jim Miller, Senior Program Associate for the AAAS Program of Dialogue Between Science and Religion

W. Mark Richardson, Episcopal Priest, Associate Professor of Systematic Theology, General Theological Seminary

Holmes Rolston, University Distinguished Professor in the Department of Philosophy, Colorado State University

Michael Ruse, Professor of the Philosophy of Biology and Ethics, at Florida State University

Mary Evelyn Tucker, Professor of Religion at Bucknell University

Dorothy Wertz, Senior Scientist; Social Science, Ethics, and the Law; The Shriver Center.